High Confidence Medical Device Software and Systems Workshop (HCMDSS) 2005; Philadelphia, PA

This award is for a High Confidence Medical Device Software and Systems (HCMDSS) workshop, Philadelphia, June 2-3, that provides an open, working forum for leaders and visionaries concerned with information technology in medical devices and systems. Participants are drawn from industry, research laboratories, academia, hospitals, and government. The goal of the workshop is to develop a roadmap for information technology research to overcome crucial issues and challenges in the design, manufacture, certification, and use of future medical device software and systems. The workshop is sponsored in cooperation with the High Confidence Software and Systems (HCSS) Coordinating Group (CG) under the NSTC Networking and Information Technology Research and Development (NITRD) Subcommittee.